Nonlinear Bubble Dynamics and Medical Ultrasound

9712179 Szeri High frequency sound waves, known as ultrasound, are used in an increasing number of diagnostic and therapeutic modes in medicine. The beneficial effects of ultrasound can often be increased when microbubbles are present; these may either be produced by the sound field itself or injected into the patient. Hence, the nonlinear dynamics and control of volume oscillations of microbubbles is of great importance in a variety of medical applications of ultrasound. In medical imaging, microbubbles are valuable as contrast agents. Owing to their compressibility relative to surrounding tissue, bubbles return a stronger echo from an incident sound field that can be used to construct an image useful to physicians. The echo from bubbles can be enhanced by exploiting the nonlinear oscillations of bubbles which return an echo at a simple fraction or multiple of the incident frequency, further differentiating the bubbles from the surrounding tissue. In a second application known as sonodynamic therapy, ultrasound interacting with microbubbles drives chemical reactions that release radicals from injected reagents to destroy tumor tissue. The rate-limiting step is the slow growth of microbubbles to useful size by uptake of dissolved gases from the surrounding liquid. When the slowly growing bubbles become large enough, violent collapses initiate the therapeutic effect. The importance of nonlinear dynamics to these developing applications is clear, yet much is unknown about the physics of bubbles undergoing nonlinear oscillations at medically-relevant conditions. Therefore, research is proposed into nonlinear dynamics of resonances, damping, ultrasound-induced bubble growth, effects of encapsulation, and control of bubble oscillations. New control capabilities are under development that involve a novel technique for optimizing bubble dynamics by alteration of the driving acoustic waveform from a simple sine wave. The optimization can be constructed so a s to increase the echo from microbubbles used in imaging, or to increase the rate of ultrasound-induced growth of bubbles used in sonodynamic therapy. These enhancements do not require more intense ultrasound, but rather alterations in the acoustic waveform, and so can be obtained without additional risk to the patient. ***